Excellence in Elementary Science: A Project for the Cincinnati Public School Systems

The two outstanding features of this project are its emphasis on a hands-on investigative approach to elementary science instruction and its commitment to addressing the needs for effective science education of underrepresented and underserved groups in the Cincinnati Public School System. Thirty leadership teachers will receive extensive educational experiences during the first year of the project and will support the school system's efforts to identify new instructional material for the elementary science program. Seventy-two underprepared or less well-prepared teachers will participate each year following the first year for a total of 246 participants. This will allow the school system to have teachers with special experiences in elementary science instruction in each of the city's elementary schools. All workshops and seminars will provide teachers with in-depth experience with concepts and processes in the biological, physical, environmental, and earth sciences. As the participants' familiarity with science concepts and process increases, they should become more comfortable with the subject matter and increasingly confident in their abilities to support their fellow teachers as they implement the new hands-on science curriculum. The cost sharing will be 95% of the NSF portion.